Mathematical Sciences Computing Research Environments

9628630 VASERSTEIN The Department of Mathematics at the Pennsylvania State University will purchase workstations to be dedicated to the support of research in the mathematical sciences. Primary attributes of the multiprocessor workstation are fast integer performance and large main memory. Particular research projects which are proposed are in automated reasoning and theorem proving, left-distributive algebras and cryptology, solving for rational points on cubic curves, and determining global convergence properties of discrete time dynamical games. Methods involve integer, floating point, symbolic and algebraic computations.